A Parallel Computer System for Undergraduate Education

9451499 Barbour This proposal investigates the construction of a Parallel and Distributed Processing Laboratory to support new courses on parallel processing in our undergraduate curriculum. The lab will also be used as a test bed for student experiments including class projects, parallel programming assignments and undergraduate research projects. These projects will include, but will not be limited to, designing and testing of parallel algorithms, measuring performance of parallel algorithms, designing and implementing distributed programs, setting N-way dynamic connection on LANs, and implementing remote procedure call packages. Students will gain practical experience in parallel programming, network system programming for distributed applications, and application development for neural networks, pattern recognition, and fuzzy logic control systems. The proposed parallel computer system will consist of four SUN workstations (already in place), a parallel CNAPS computer and a SUN Sparc Station. The SUN Sparc Station will act as a front end for the CNAPS computer and as a server for the four SUN workstations. This parallel and distributed system will be connected to the department's existing LAN via a gateway which will allow students to develop projects without interfering with the operation of the LAN. Due to the increasing importance of parallel/distributed computations and computer networks, the proposed laboratory will better prepare students for both professional and academic careers. The lab will enhance the senior year and the minority summer research programs supported by the College of Arts and Sciences at Georgia Southern University. We expect that the Physics and Biology Departments as well as the Engineering studies and Engineering technology programs will also benefit from this project.